Strengthening Undergraduate Curriculum and Community to Engage Science Students (SUCCESS)

The goal of the Strengthening Undergraduate Curriculum and Community to Engage Science Students (SUCCESS) Program is to increase the recruitment, retention, and graduation rates of financially needy but academically talented students majoring in Chemistry, Biochemistry, or Biology with Chemistry Minor. The program provides two cohorts of 8-12 students with yearly scholarships for four years of study each as well as an academic, professional, and social program targeted specifically for the scholars.
Specifically, the SUCCESS Program has three objectives: 1) increase persistence and graduation rates of the targeted majors; 2) improve the readiness of graduates to successfully enter either the workforce or continue their studies in graduate school; and 3) increase the number of educated workforce in areas of technical need, with a particular emphasis on increasing the number of underrepresented groups.